Postdoctoral Fellowship: MSPRF: Cubulation and Combinatorial Nonpositive Curvature

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Zachary Munro is “Cubulation and Combinatorial Nonpositive Curvature”. The host institution for the fellowship is the University of Bristol and the sponsoring scientist is Mark Hagen.